An Integrated Framework for Real-Time Specification and Analysis

The principal investigator is developing an integrated framework for the specification and analysis of real-time systems. Since the timing behavior of a system critically depends on the availability of shared resources,the approach unites the areas of process specification, concurrency theory and real-time scheduling. The result is a layered framework called Communication Shared Resources. At the top layer is the CSR Application Language, which describes the functional and temporal requirements of a system. At the next layer is the CSR Configuration Language, which maps process to resources, and specifies the system's interconnection network. At the lowest level is the CCSR process algebra, which embraces a resource-based view of concurrency,and is defined by a prioritized operational semantics. The researcher is constructing an integrated toolset based on this theory. A reachability analyzer checks for violations of real- time constraints explicitly denoted within a finite-state applications. A model-checker is used to verify real-time safety assertions that are not denoted within an application. Finally, a simulator tests the system, using test suites generated from the characteristics of the implementation environment.